Cloud Condensation Nuclei Concentrations: Protocol for Comparison Between Direct Measurements and Indirect Calculations

Could condensation nuclei (CCN) concentration exerts a profound influence on the earth's atmosphere by directly affecting cloud albedo. As a first step toward developing the needed parameterization of cloud microphysics for global questions such as the effect of marine aerosol or air pollution on cloud albedo, it is essential to test the internal consistency which must exist between aerosol microphysics, nucleation theory, and direct measurements of CCN concentrations. The objective of this planning grant is to develop the protocol for such a test. The planning period will be used to investigate and evaluate such topics as: experimental verification of the relationship between size, composition, and CCN concentration for particles containing mixtures of insoluble material, soluble salts, and organic compounds; measurement of droplet growth rates in supersaturated environments, including the effects of organic films; comparisons between nuclei activated in CCN counters and nuclei which have been activated in real clouds. Sensitivities required in the measurements will be modelled and compared with typical instrumental accuracies.